US-Hungary Studies of Low-Lying Magnetic Dipole and Electric Octupole Excitations in Nuclei (Physics)

The primary objective of this U.S.-Hungary cooperative research project between Dr. Steve Yates of the University of Kentucky and Dr. Gabor Molnar of the Institute of Isotopes, Hungarian Academy of Sciences, is to measure short nuclear lifetimes. The researchers will employ a technique known as the Doppler-Shift attenuation method to follow inelastic neutron scattering reactions. Their collaborative studies of spin-flip excitations in N=50 nuclei, of collective M1 scissors mode states in deformed rare earth nuclei, and of octupole and multiphonon excitations should yield new, high quality spectroscopic information of exceptional intrinsic merit in the field of nuclear structure physics. This project in nuclear physics fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine complementary talents and pool research resources in areas of strong mutual interest and competence.//